Project Development Visit on Theory of Finite Strain Consolidation

This award supports a U.S. Yugoslav project development visit to the Gradevinski Institute, Zagreb, Yugoslavia. The primary purpose of the visit is to develop a collaborative research proposal between Dr. Robert Schiffman of the University of Colorado's Department of Civil, Environmental and Architectural Engineering and Dr. Antun Szavits-Nossan at the Gradevinski Institute on a comprehensive theory of finite strain consolidation of soft soils. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State and no NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. A project development award provides travel funds for the American scientist to Yugoslavia.